SGER: Phosphorus release and metal redox cycling associated with sediment reworking in the Colorado River Delta, Lake Powell, Utah

0621371
Hering
SGER: Phosphorus release and metal redox cycling associated with sediment reworking in
the Colorado River Delta, Lake Powell, Utah
Abstract. As a result of the drought that began in 2000 and reservoir operations that provided a
constant water supply to the lower Colorado River basin states, Lake Powell is currently at only
46% capacity. Under these conditions, the river inflows cut through sediments previously
deposited in the Colorado River Delta. We hypothesize that the consequent resuspension of
sediments may result in enhanced phosphorus release and metal redox cycling. In recent years, it
has been observed that anoxia develops in bottom water intersecting the delta sediments, which
could also result in P release due to reductive dissolution of iron oxide carrier phases in the
sediments.
Primary production in Lake Powell is phosphorus limited and changes in phosphorus
availability could have significant ecological consequences. Suspended sediment transported by
the Colorado River is the principal source of phosphorus to Lake Powell; much of this sediment
load is deposited as the Colorado River flows in to the lake (i.e., the river-lake boundary). Thus
previously-deposited delta sediments represent a substantial reservoir of phosphorus.
Intellectual Merit. The proposed project will examine the coupling of biogeochemical and
physical processes and their impacts on phosphorus and trace metal dynamics. Speciation of
phosphorus in solid phases (specifically the suspended sediment and delta sediments) will be
determined and related to the conditions under which phosphorus may be released from the
sediments. The role of reductive dissolution of metal (e.g., iron) oxides in phosphorus release
will also be examined.
Broader Impact. Phosphorus dynamics exert a key control on primary production in
Lake Powell. We anticipate that our results will show whether phosphorus and trace metal
dynamics are altered under the current conditions where Colorado Rived inflows cut through
previously-deposited delta sediments. If phosphorus dynamics are affected, patterns of primary
production and the development of bottom water anoxia during the recovery from drought
conditions may be significantly different from historical patterns.
This SGER project will also support the graduate training of Mr. Richard Wildman, a
third year graduate student in Environmental Science & Engineering at Caltech. In addition to
his academic studies, Mr. Wildman has been actively engaged in outreach and curriculum
development at the Environmental Charter High School in Lawndale, CA, a public school
located in an underserved area of Los Angeles County.
SGER Justification. Because of the current low lake level, there is a unique opportunity to
examine the effects of sediment reworking on nutrient dynamics, specifically phosphorus release
from sediments. Currently, previously-deposited sediments are exposed to river inflows. As the
lake levels rise, these sediments will be resubmerged. Since the extreme drawdown in the 2000-
2004 drought and the above-average inflows of the 2005 run-off are creating unprecedented
physical conditions in the sediment delta, we are requesting SGER funding to examine the
phosphorus and trace metal dynamics in this changing system. This work is also timed to
coincide with planned field sampling by the Bureau of Reclamation, which will provide
logistical support for sampling.